Connection to NSF's vBNS Network: A Proposal submitted by University of Puerto Rico Research Institutions and the National Astronomy and Ionosphere Center

This high performance connections award provides support for three research
institutions and an NSF astronomy facility on the Island of Puerto Rico to
establish a very high performance connection to a gigapop on the mainland
(likely in Florida). The involved institutions include three major research
campuses of the University of Puerto Rico (Rio Piedras, Medical Sciences,
and Mayaguez) and the National Astronomy and Ionospher Center at Arecibo.
Included in the engineering plans is an aggregation point for island
connectivity and a high performance link from that aggregation point to the
mainland. Involvement of the Arecibo facility represents significant
opportunity for the entire national astronomy community to gain remote
access to an important telescopic resource. The addition of the University
of Puerto Rico to the community of universities involved in NGI, Internet2,
and advanced high performance networking brings into play important
research activities in the biological sciences, medicine, geophysical
sciences, physics, astronomy, and other fields. Of special note is the
Luquillo Long Term Ecological Research (LTER) project. Many collaborative
relationships with other U.S. universities are expected to be enhanced by
this network access.